Planning Grant for the Development of a Master's Degree for Elementary Teachers with an Emphasis on Science

This planning grant will lead to a full proposal from the University of North Texas for a Teacher Institute which offers a master's degree in elementary science. The planning grant will begin examining elementary science protocols, establish design teams to make decisions on content, and begin the process of redesigning existing university courses. In all, 12 courses, 3 credits each, will be modified by the design teams. Through this project, a major will be created which prepares teachers in content, methodology, and in their new roles as change agents in schools which use site based management. The planning grant begins the processes that lead to the Teacher Institute. The new concentration is expected to be institutionalized by the end of the grant. The University of Texas is cost sharing 92% of the project.